Government-Industry-University Workshop on Polymer Matrix Composites in Construction

This project is a workshop to determine the research activities for the application of fiber reinforced polymer matrix composites to the construction industry. Representatives from industry, government and academics will be invited to participate and plan a long term research program.